CAREER: Design of Efficient Quantum Algorithms

Expediting computations by operating in the quantum mechanical regime is
an intriguing idea. Apparently, some problems can be solved much faster by
quantum algorithms than by any randomized algorithm. The main thrust of
this proposal is to derive design methods for fast quantum algorithms, and
to study various applications such as pattern recognition and communication
problems. The main objectives of the proposed research are
the development of design methods for quantum circuits;
the development of design principles for quantum algorithms;
the application of such methods to pattern recognition applications;
and the development of primitives for quantum communications.
The project is integrated with an educational plan which supports the goals
the the PI's department. The objectives of the educational plan are
the further development of a course on quantum algorithms;
the development of a new course on randomized algorithms;
the development of experimental components and new material for
courses in Information, Secrecy, and Authentication;
an outreach component which explains and animates quantum algorithms
and protocols in the form of a virtual tour.
The educational plan includes the continued improvement of the course materials
for the above courses.
The PI will organize an interdepartmental Quantum Computing Seminar
and two mini-symposia so that students, faculty, and participants from local
industry get informed about the latest research in quantum computing.
The project provides opportunities for one undergraduate student and two
graduate students to participate in the research.